Ship Operations - R/V SALLY RIDE Cy 17

Part 1:
Boarder Impacts
Scripps Institution of Oceanography (SIO) proposes to operate the research vessel Sally Ride to support
NSF-funded scientific research in the year 2017. As a large shared-use facility scheduled within the
collaborative framework of the University-National Oceanographic Laboratory System (UNOLS), Sally
Ride will host scientists from across the United States and undertake research in a variety of disciplines.
The ship will be operated in a manner that promotes efficiency, capability, and safety in order to
maximize NSF's investment in this shared-use facility, and the programs that are conducted on board. A
key element of our approach is preparing the vessel, crew and technicians to rapidly accommodate
radically different scientific missions during brief in-port periods, involving extensive loading,
offloading, laboratory reconfiguration, and installation of project-specific deck equipment. The operating
tempo of expeditionary oceanography requires a carefully planned yet flexible approach to vessel
maintenance, regulatory compliance, foreign clearance, crewing and working with scientists, which we
will execute so that projects can be completed successfully and on schedule.
Part 2: Intellectual Merit:
The observation, measurement, and collection of samples and data are accomplished on a global scale by
operations aboard Sally Ride. SIO-operated ships have played a critical role in the exploration of our
planet since 1907, and continue to contribute significantly to the U.S. ocean research effort. The seagoing
operations proposed here enable transformative scientific research in physical and biological processes in
the natural environment upon which human well-being depends. The intellectual merit of this proposal is
amplified by the combined merit of research projects undertaken by scientists on board. During 2017,
Sally Ride will support four NSF-sponsored research cruises in the eastern Pacific Ocean to conduct
research in marine ecology, marine chemistry, ocean observing, and physical oceanography. NSFsponsored
research (including Ocean Observing Initiative research) will account for 19% (39 days) of
Sally Ride's work this year. The remainder of the work will be supported by the Navy (110 days, 55%),
the National Oceanic and Atmospheric Administration (26 days, 13%), and the Scripps Institution of
Oceanography (27 days, 13%). Each program contributes its own distinct intellectual merit.
Broader Impacts:
The proposed work constitutes strongly collaborative, multi-disciplinary and multi-institutional use of
shared-use research and education infrastructure. As a charter member of UNOLS, SIO is actively
involved in coordinating research vessel operations with scientists and funding agencies so shipboard
capabilities can best meet the current and anticipated research needs of the entire community. The
spectrum of research projects enabled by SIO's operation of Sally Ride achieves far-reaching broader
impacts through the operation and maintenance of infrastructure that is critical to the promotion of
training and learning, increasing the participation of underrepresented groups in research, advancing
scientific and technological understanding and informing policy making.
SIO's proposed operation of Sally Ride enables institutional programs to directly advance NSF's
mission to promote achievement and progress in science, engineering and education for the benefit of the
nation. In the five-year period ending in 2016, 1,026 graduate students, 448 undergraduate students, and
131 K-12 and college educators obtained first-hand experience at sea aboard SIO research vessels. Sally
Ride is part of SIO's UC Ship Funds Program, which enables graduate and undergraduate students,
postdoctoral researchers and early career faculty to pursue independent research and instruction at sea via
an internal peer-reviewed competitive process. The vessel is also integral to SIO's K-12 education
program In the Footsteps of Sally Ride, which integrates classroom instruction, hands-on practical
experience, and shipboard telepresence to teach physical science to economically disadvantaged seventhand
eighth-grade students in coherence with national science standards. As a shared-use resource for
NSF-supported scientists, Sally Ride similarly contributes to the education, training and outreach
missions of those scientists and their home institutions.